Heat Flow during the 1990 Alvin/Atlantis II Operations at Endeavor Segment, Juan de Fuca Ridge

Funds are provided for an ancillary heat flow program during an ONR-funded study of crustal evolution and hydrothermal processes on the Endeavor segment of the Juan de Fuca Ridge. The survey will concentrate on 3 sites: one just to the west of the axis of the Endeavor Segment, and two sites farther off- axis with 20-40 m of sediment in which mounds that may be hydrothermal were recently discovered in a setting similar to that of the Galapagos Mounds. Heat flow measurements will be critical for defining the hydrothermal regime and its effect on the processes of crustal evolution in the survey area.